Analytical and Numerical Studies of Deep Overflows and Related Circulations

Pratt
0132903

Two-layer dynamics of sill flows will be studied with analytic and numerical techniques. Particular issues to be addressed include the nature of hydraulic transitions and upstream influence, effects of separation of the interface from side-walls, transport relationships, special features such as hydraulic jumps and recirculations, and procedures for assessing flow criticality. Interest will be focused more on the inflow and throughflow regions, rather than on the effluent plume that sinks at the outflow.